International Symposium on Clusters and Nano-Assemblies: Physical and Biological Systems; Richmond, VA; November 10-13, 2003

Virginia Commonwealth University (VCU) holds an international symposium on "Clusters and Nanoassemblies: Physical and Biological Systems" in Richmond, VA, on November 10-13, 2003. The symposium focuses on the unique properties of nano-scale biological systems such as proteins, enzyme reactions, RNA, and DNA and how their understanding can assist on the design of materials based on inorganic nanoscale systems. The symposium also addresses the utilization of techniques developed in the physical sciences to develop a fundamental understanding of biological systems.

This is the fifth of a series of international symposia around the general theme of clusters and atomically-designed materials organized by VCU. The symposia have evolved to address current topics each time. The general topic of this symposium, the exploration of the interface between the physical and biological world at the nanoscale, is very timely and it is anticipated to generate interest from a wide spectrum of researchers in the physical sciences.